Implicit and Explicit Contributions to Motor Skill

A commonly-appreciated characteristic of motor skill learning is that much
of it occurs outside of awareness. Particularly at high levels of skill,
we seem not to be able to articulate the exact movements that make up
performance. On the other hand, conscious strategies are clearly important
in motor skill learning; consciously understood strategies are at the
heart of coaching and instruction.

A considerable amount of research has been directed at demonstrating that the
conscious (or explicit) and unconscious (or implicit) parts of motor skill
learning are supported by different structures in the brain; thus the
emphasis has been on the separability of these two components of learning.
Less work has been directed at understanding how these two forms of
knowledge work together. The goal of this project is to examine the
relationship of implicit and explicit knowledge in motor skill learning.
The experiments are motivated by a model of motor skill learning that
proposes specific mechanisms by which both implicit and explicit knowledge
contribute to motor skill learning. There are three aims of the project:

Aim 1: What is the representation underlying sequence learning? Many motor
skills involve learning a sequence (e.g., the notes of a piano sonata).
When one learns a motor sequence, what is it a sequence of? Stimulus
positions? Response locations? Muscle movements? I will utilize transfer
designs to determine the representation underlying implicit and explicit
sequence learning.

Aim 2: What is the time course of implicit and explicit learning? Some
formal models of motor skill learning suggest that implicit knowledge is
compiled from explicit representations. Behavioral experiments suggest
that explicit and implicit knowledge can be acquired in parallel, whereas
brain imaging work suggests that only one type of representation can be
acquired at one time. This project will address this question directly.

Aim 3: What is the mechanism by which explicit and implicit knowledge
interact? This project examines the possibility that explicit knowledge
can support performance on an implicit task if three conditions are met:
the subject knows that he or she has applicable explicit knowledge,
sufficient attentional resources are available, and the explicit
representation is specific in terms of the spatial targets for movement.

These experiments will further our knowledge about the normal operation of
motor skill learning, and have particular relevance to athletics, and to
skill learning in industrial situations.